Arabidopsis 2010: Bioluminescence Resonance Energy Transfer (BRET)- A Tool to Explore Protein-Protein Interactions in Arabidopsis

The goal of this project is to develop a novel optical technique, termed
Bioluminescence Resonance Energy Transfer (BRET), as a resource for the plant
functional genomics community, specifically in the model species Arabidopsis
thaliana. BRET has shown promise as a tool to chart the physical contacts
between specific cellular proteins, and their time-resolved interactions, in
living tissue and in real time. While the importance of such interactions has
long been recognized in the life sciences, the corresponding experimental tools
have largely been limited to in vitro conditions or to heterologous, non-plant
organisms. Therefore, the BRET technique will provide a unique contribution
toward delineating the functions of the 25,000 genes thought to be contained
within the Arabidopsis genome.

BRET is a form of radiation-free energy
transfer that can occur when two compatible optical probes are brought into
molecular proximity. In detail, to probe for a protein-protein interaction
between two given partner proteins, the two proteins are genetically fused to a
blue light emitting luciferase and to a blue light absorbing yellow fluorescent
protein. If the two hybrid proteins interact, the excitation energy of the
luciferase may be transferred to the fluorescent protein, resulting in an
easily detected yellow-shift in the luminescence spectrum.

The first goal
of this project is to construct molecular genetic tools, such as cloning
vectors, for the expression of BRET hybrid proteins. Second, instrumentation
and experimental protocols will be optimized for time-resolved BRET data
acquisition. Moreover, as a prototype example of the efficacy of BRET for
research in plants, BRET will be applied to illuminate the genetic networks
that mediate the control of nuclear gene expression by light and the circadian
clock. Resources developed in this project shall be widely disseminated to
encourage their application within the entire plant science community
(http://chicory.bio.vanderbilt.edu/chj/arabidopsisbret